Low Temperature Deposition of Thin Metal Films for Solar Cell Applications

9423716 He Thin metal film applications in electronic devices and circuits are topics of great current interest and will be studied. The goal of this research is to obtain a reliable, low-resistivity, thin metal film by LT deposition, to attain lower resistance performance. The planning activities are as follows: (1) Prepare uniform, electrical and structural stable LT thin films of various conventional contact metals including : Au, Al, Ag, Pd, Ni and Cr; (2) Evaluate the resistivity, TCR and their relation to the film thickness as well as the film preparation conditions, deposition rate and substrate temperature. Perform the stability test; and (3) Identify the physical and chemical structure, as well as the conduction mechanism of the LT thin films, correlating microstructural properties with electrical data. This project will also provide a better basic understanding of the electrical and structural characteristics of the LT thin films. ***